Supporting and Understanding Sustainability in Local Systemic Change

0088027
FALK

The project extends the electronic community to include those LSC projects which have recently "graduated" (reached the end of their NSF support). Former projects receive continued access to LSC-Net and participate in research on aspects on sustainability. The project design also includes an annual electronic conference with many special features catered to the needs of districts and educators.

The objectives are to continue to provide support and access to LSC-Net; to create additional functionality for, and implement a virtual conference on, sustainability; and to conduct collaborative research on sustainability within an LSC context.